The LHRH System and Reproductive Function

King 9514687 Successful reproduction in animal species requires the release of an egg from the ovary, known as ovulation. Ovulation requires the joint action of a part of the brain, known as the hypothalamus, and the pituitary gland. A chemical substance released by the hypothalamus, luteinizing hormone-releasing hormone (LHRH), is transported by the blood to the pituitary gland and acts on cells therein to enhance the secretion of luteinizing hormone (LH) which helps prime the ovary for ovulation. The exact mechanism involved in LHRH secretion into the bloodstream is currently a mystery but through the efforts of Dr. King, she has demonstrated marked cellular reorganization within the vascular portion of the hypothalamus, known as the median eminence, that facilitates chemical secretion by the brain. Dr. King is using the state of the art microscopic techniques to investigate the anatomical relationship between the cells producing LHRH and glial support cells in the median eminence and the changes in this relationship occurring at the time LHRH is secreted. Dr. King is also examining the role of excitatory neurotransmitters in the dynamic relationship between LHRH-containing cells, glial cells, and the blood vessels themselves during the remodeling at the time of LHRH secretion. Studies to identify the cellular components involved in communication between these cells that stimulate reorganization are underway. These studies examine the local regulation of brain LHRH secretion. The coordinated secretion of LHRH is responsible for the regulation of reproductive abilities in animals and understanding these mechanisms is central to the survival of all animal species, domestic or wild, including man.